Aggregation and Deposition Behavior of Carbon Nanotubes in Aquatic Environments

0646247
Elimelech

The overall objective of this research is to investigate the aggregation and deposition behavior of CNT in aquatic environments. Because of the unique dimensions and physicochemical properties of CNTs, it is likely that their aggregation and deposition behaviors are quite different than those of the much studied submicrometer-sized inorganic and organic colloidal particles. Specifically, we will examine how CNT functionalization, size of primary single CNT, aggregation (bundling) state, and aqueous solution composition affect the kinetics of aggregation and deposition/filtration in aquatic environments. This information will be used to evaluate to what extent CNTs released into natural waters may be present as larger aggregates and the potential for these aggregates to be removed due to physicochemical processes such as sedimentation and deposition/filtration.